Group Travel for U.S. Participants in the 6th International Symposium on High Performance Computer Architecture

Proposal Number: CCR-9974980
Title: Improving Hugs: Haskell as a Research Tool
PI's: Tim Sheard and Mark Jones, Oregon Graduate Institute

The programming language Haskell has emerged as the standard lazy
functional language, and offers strong typing, higher-order features, and
parametric polymorphism. The Hugs interpreter is a simple, easily ported,
implementation of Haskell. This project will enhance Hugs, focusing on
issues of usability and integration with the high-performance Glasgow
Haskell Compiler.

The project improves the Hugs interpreter in several ways:

Integration with GHC runtime system:
By completing the integration of the Glasgow Haskell Compiler run-time
system with the Hugs interpreter, a fully interoperable system capable
of executing a mixture of compiled and byte-code interpreted code will
be constucted.

Declarative debugging:
The project will investigate the problem of tracing the computational steps
of a lazy functional program, at a level of abstraction consistent with the
programmers view of the program.

Better Error Reporting:
The project investigates how to improve the type error debugging
process by building improved type inference systems into
Hugs, capable of reporting both where and why type errors have
occurred.

Successful integration with the GHC run-time system has numerous
benefits. It allows the Hugs interpreter to access the existing GHC
features including compiled preludes and libraries, while maintaining
the small footprint and ease of use of an interpreter. Completion of
the project will greatly increase the size and complexity of the
problems to which the Hugs interpreter can be applied.